Ergodic Theory

In this period, ideas and techniques from Ergodic Theory have been
percolating in many areas of mathematics and of applications. This
project aims to expanding these interactions and to investigating the
related problems in Ergodic Theory.

Of particular interest will be the horocycle flow on infinite type
surfaces and the related questions in analytic number theory and on
Teichmueller spaces, the noncommutative ergodic theorems in relation
with geometric group theory and the ergodic theory of partially
hyperbolic dynamical systems.